Network for High Resolution H-alpha Full Disk Observations of the Sun

The investigators will establish a network for continuous observation and surveillance of processes in the solar atmosphere. The main effort is to install and operate three large digital cameras to obtain full disk images of the sun in the red light emitted by hydrogen (H-alpha) in the lower chromosphere, approximately 1000-km above the surface. The data will be used to track every new emergence of magnetic flux in order to understand why some new flux forms super-active regions while other emerging flux decays quickly. Other activities include providing high quality data for solar activity monitoring and for correlative studies with other ground-bases and spacecraft observations. All flares and filament or prominence eruptions observed by the network will be classified and cataloged.